An Undergraduate Software Engineering Laboratory

An Undergraduate Software Engineering Laboratory This project will create a software engineering laboratory based on a client/server cluster consisting of a file server and high-performance workstations. This will make possible the enhancement of one existing course, and the creation of three others. These courses, Computer Networks, Distributed and Parallel Systems, Software Design and Software Environments, together with other courses will improve and support the software engineering concentration within the computer science major program at Oswego. Implementation will substantially strengthen Oswego's ability to graduate competent software engineers.